Computer Science, Engineering, and Mathematics Scholarship Program (CSEMS)

This program increases the opportunities for academically talented, but financially disadvantaged, students to succeed. The scholarship recipients work with a specially designated advisor who to maximize the effectiveness of the existing university support programs in the following areas: financial aid planning, including securing additional aid, academic program planning, achievement progress and supplemental assistance, and career planning through a selected in- field experience such as co- op or internship programs, or academic activities with faculty. The program represents one component of the ongoing efforts at the institution to improve the education of students in engineering, mathematics and computer science, and to increase the retention of students to degree attainment.